US-Russia Visit of Polymer Chemists to Workshop in Washington, DC, August 21-31, 1992

This project will support the visit of twelve young Russian polymer scientists to meet their counterparts in the United States. During the period August 23-28, 1992, the Russians will attend the national meeting of the American Chemical Society in Washington, DC. They will present posters and generally interact with their American colleagues. From August 28-31, 1992, discussions will continue in the form of a small workshop in which about twelve young American professors with similar expertise will participate. This program will introduce the Russians to American science and will enable Americans to develop ties to the new generation of Russian scientists. This project in polymer chemistry fulfills the program objectives of advancing scientific knowledge by enabling young experts in the US and Russia to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.